Understanding Race and Human Variation: A Public Education Program

The American Anthropological Association will develop a 5,000-sq. ft. traveling exhibit, website and educational materials on "Understanding Race and Human Variation." Through an integrated, comprehensive and learner-focused educational program, visitors will be presented with the idea that human variation is part of nature and that race is a dynamic and sometimes harmful cultural construct. The project will advance knowledge across the sciences by bringing together scientists and scholars in translating research to the public and developing a common language.